PSU Engineering Technology Scholarship Program

The objectives of the Engineering Technology Scholarship Program are: 1) to provide 4 year scholarships to at least 13 students in the areas of engineering technology including at least 4 students from underrepresented groups. 2) 70% of the students who receive a scholarship will graduate with a B.S. in engineering technology in 4 years. 3) Provide free tutoring for all math, science and engineering technology courses for participants. 4) Provide industry internships for 75% of participants. This program also provides enhanced student support services including mentoring opportunities with professionals from industry and cohort career services workshops and cohort academic advising.